Fourth International Conference on High Dimensional Probability

The Fourth International Conference on High Dimensional Probability will be held on June 20-24, 2005 on the St. John's College campus in Santa Fe, New Mexico. The conference will center on current research topics in Gaussian methods, limit theorems, infinitely divisibility, small deviations, Empirical processes and U-processes, learning theory, non-parametric statistics, and spin glasses.